Research Experiences for Undergraduates in Physics

This activity will support the participation of a group of undergraduates in the research program of a leading university. This will expose the students to physics research at the university and, through visits, to similar research at nearby laboratories.